ITR: (ASE)-(sim+dmc+int): Computational Simulation, Modeling, and Visualization for Understanding Unsteady Bioflows

This project is to discover new distributed simulation, visualization, and analysis tools for interacting with and understanding multi-valued volumes of scientific data and the biological phenomena they measure. The tools will be developed and evaluated in close collaboration with biologists studying three independent flow-related problems: coronary artery lesion and thrombus formation, the mechanisms and evolution of bat flight, and the mechanism and evolution of fish propulsion and maneuvering.

The work includes advancing basic scientific understanding in the three biological application areas. In addition, the experimental methodology of acquiring 3D motion and flow data using 3D Digital Particle Image Velocimetry (DPIV) and high-speed video will advance the state of the art for studying flow interactions with other biological and man-made systems and may be used for prediction, risk-assessment and decision-making.

The simulation and modeling work to address the biological problems will create new simulation methods for coupling unsteady flow and structure calculations, new methods for incorporating uncertainty into unsteady simulation results, new methods for combining unsteady experimental and simulation data to facilitate comparisons between them, and new methods for filling in gaps in unsteady experimental data.